Inter-Regional Connectivity for PREPnet

9321068 Bajzek This award assists the regional network, PREPnet, in obtaining connectivity to other regional networks in the United States and to the rest of the Internet. The award made under the guidelines published in the NSF Program Solicitation 93-52, partially funds two connections each providing four million bits per second service over an anticipated duration of 4 years.